A Study of the Influence of Pollutants on Geotechnical Properties of Clays

The objective of this research is to develop an understanding of the microstructural aspects of contaminated clays. Specific objectives are: 1. to quantify the physical adsorption of contaminants by clay particles; 2. to quantify the change in physico-chemical forces between clay particles as a result of change in pore fluid chemistry; 3. to investigate the change in fabric resulting from the change in physico-chemical forces; 4. to investigate the change in engineering properties resulting from the above factors. The properties investigated are physical adsorption, stress-strain strength relation, compressibility and hydraulic conductivity.